Managing the Potential Contamination of Ground Water from Pesticides

The central question addressed in this proposal is the effect of pesticides on the ground water system, beyond the unsaturated zone horizon. This will accomplished by formally linking the PRZM model with a 3-D ground water model, and will involve a spatial integration of the 1-D PRZM results to the horizontal spatial dimensions, using the PC-based GWT-Platform. This is a prototype integrated groundwater simulation environment, written for the MS Windows-3. It manages the collection and use of all geographic, physical, and chemical information of the application, which is entered in graphical mode on the screen. Relational data bases are formed and, automatically used for actual simulation, monitored on the screen in real time, with quasi-instantaneous graphical output.